Polymer and Organometallic Chemistry Related to Acyclic Diene Metathesis (ADMET) Polymerization

Acyclic diene metathesis polymerization was demonstrated late in 1988 by the authors using metathesis catalysts free of Lewis acids (Schrock's catalyst). Aliphatic and aromatic homo- and copolymers have thus been made. Monomer structure/reactivity relationships have been established; and unsaturated polymers containing functional groups have been prepared, including unsaturated polyethers, polyketones, polyesters, polycarbonates, and polycarbosilanes. An air-stable metathesis catalyst and oligomers of metal-containing polymers have been prepared. In this research, the polymer chemistry associated with the reaction will be explored by evaluating the influence of nitrogen- and sulfur-containing functional groups; and by synthesizing chiral polymers, more elaborate silicon-containing polymers, and perfectly functionalized telechelic oligomers. Attempts will be made to advance this research by synthesizing tailored catalyst systems possessing a high degree of thermal stability. This Materials Synthesis and Processing grant is jointly funded by the Division of Materials Research and the Division of Chemistry.